Industry/University Cooperative Research Center for Intelligent Maintenance Systems (IMS): FIVE-Year Renewal Proposal

This action continues the life cycle of the multi-university Industry/University Cooperative Research Center for Intelligent Maintenance at the University of Cincinnati, the University of Michigan and the University of Missouri-Rolla. This I/UCRC is in the forefront of research on predictive monitoring and prognostic and decision support tools. The I/UCRC aims to maintain its commitment to intellectual and technical excellence by horizontally fostering stronger international partnerships and vertically deepening its impacts to the current members, as well as to the advancement of scientific knowledge and tools for next-generation autonomous maintenance systems.